Support for the Fourth International Congress on Pacific Neogene Stratigraphy.

This award will support travel and meeting expenses for participants at the Fourth International Congress on Pacific Neogene Stratigraphy to be held in Berkeley, California. The overall theme of the Congress is to explore recent developments in isotopic and seismic stratigraphic tech- niques. Special emphasis at the meeting will be given to major events or changes in oceanographic and climate condi- tions in the Pacific Region. Funds in the award will be used to defray registration expenses of students and ensure participation of key foreign scientists.